Parallel Processing in the Undergraduate Curriculum

This project provides a 2 week workshop focusing on parallel processing for faculty from institutions with limited parallel computing equipment. It also includes a follow-through activities during the following academic year. The workshop covers material on how to design and write parallel programs, parallel computer architectures, techniques for integrating parallel computing into computer science courses,and methods and materials for teaching parallel processing to UG students. The workshop includes a significant laboratory portion in which participants will have the opportunity to write, analyze, and compare parallel programs for various parallel computers and simulators. many of the lab activities will be assignments that have been successfully used with students. a portion of the workshop will be devoted to the design of a parallel processing unit or course to be implemented during the academic year following the workshop. As part of the workshop, 4 participants from prior parallel processing workshops at Illinois State University, will present the work that they have done with UG students in parallel processing. Follow-through activities will include an interactive forum during following forum, in which past participants will talk about their work. Dissemination will occur at annual national CS forums.